Robust Adaptive Network-Attached Storage

The basic elements of the storage industry are in the midst of radical change
with the advent of network-attached storage devices. Storage systems comprised
of network-attached drives provide many potential advantages over traditional
storage architectures, but also introduce additional challenges, particularly
regarding manageability. In this proposal, the WiND project (Wisconsin
Network Disks) is described, which has the goal of developing the software
techniques required to build a truly manageable network-attached storage
system.

The key to manageability is adaptation. In traditional systems, such
adaptation is performed by a human administrator. Future storage systems must
themselves adapt, and in doing so, reduce the need for manual
intervention. The WiND system will gracefully and efficiently adapt to changes
in the environment, reducing the burden of administration and increasing the
flexibility of storage for an eclectic range of clients. In particular, WiND
will automatically handle the addition of new heterogeneous disks to the
system, the failure of existing disks, and changes in client workload. Within
this proposal, three specific sub-areas of WiND are developed: adaptive data
layout and access with SToRM, adaptive caching via Clouds, and the underlying
information substrate.